Oxygen, Nutrient and Salinity Analyses in the Eastern Arctic Ocean

9521382 Swift In this project, the PI will participate, with Scripps Ocean Data Facility (ODF) personnel, in oceanographic sections crossing from the Siberian continental shelves into the Nansen, Amundsen, and Makarov basins of the Arctic Ocean, and a transect of the Siberian ends of the three basins in July-September, 1996, as part of the ACSYS (ARCtic System Sciences) program on both Swedish and German icebreakers. The PI proposes to augment the full depth CTD measurements by providing 36-place rosettes, and carrying out top-quality measurements of salinity, dissolved oxygen, and nutrients at about 120 locations along the tracks. These data are crucial to understanding the interactionsof the Arctic Ocean circulation on the global climate system. The ODF capability will add a very important element of quality control to this set of measurements. ***